Collaborative Research: DASI Track 2: Deployment and Operations of the Ham Radio Science Citizen Investigation (HamSCI) Personal Space Weather Station Network

The Ham radio Science Citizen Investigation network is designed for the study of space weather impacts. The network consist of Personal Space Weather stations (PSWS) that have one or more instruments, each capable of sensing a different aspect of the geospace environment. Data from these instruments are used to study the ionospheric impacts of solar flares, solar eclipses, geomagnetic storms, traveling ionospheric disturbances, and other small-scale ionospheric variability. Understanding short term changes in the ionosphere will enhance the ability to monitor the quality of telecommunications and navigation systems, foundational for modern economy. The network includes Ham radio operators, providing the opportunity for extensive public outreach. This project will also support undergraduate students’ participation.

This project will provide the backbone for the PSWS network to enable a range of scientific investigations by deploying thirty standardized stations capable of observing high frequency (HF) Doppler shifts, HF amateur radio transmissions, Very Low Frequency transmissions and natural radio emissions, and the geomagnetic field. Ten fully automated, Global Positioning System (GPS) disciplined amateur radio transmitters will be also deployed to serve as a new source of GPS-stabilized HF beacon signals. Once deployed, this enhanced network will enable researchers to investigate both local and continental space weather effects, including those caused by traveling ionospheric disturbances, solar flares, and geomagnetic storms. The network has been developed as a collaboration between the professional scientific and amateur radio communities.